Developmental Regulation of Auxin Transport: The Uptake Carrier

The active, polar transport of the plant growth hormone auxin is essential to the control of plant development. It has recently been demonstrated that the primary natural auxin, IAA (indole- 3-acetic acid), is taken up into plant cells in a manner analogous to amino acid or sugar cotransport, via an electrogenic 2H+/IAA symport protein and exits via a polarly-distributed efflux carrier in the plasma membrane (PM). This proposal details a simple but powerful approach to isolating the IAA uptake symport by photoaffinity labeling of the protein in purified plant PM with tritiated azido-IAA. We have now shown that the azido-IAA specifically labels two polypeptides of 40 and 42 kD MW in plasma membranes isolated from Cucurbita pepo hypocotyls with characteristics similar to in vitro and in vivo auxin transport. These data suggest that the protein doublet may be an auxin transport carrier. Monoclonal antibodies prepared against the purified polypeptides will be used for a larger scale purification of the protein(s) by affinity chromatography. This should yield amounts of pure proteins large enough for protein microsequencing and for the generation of highly specific polyclonal antibodies, which will be used both in situ for temporal and spatial localization of the corresponding protein(s), and to probe a cDNA library for colonies expressing the transport protein. The specific cDNA clones will be used 1) to determine the nucleic acid and thus amino acid sequence, 2) to select genomic clones for the study of regulatory regions, and 3) as probes for the study of the transcriptional control, if any, of the corresponding genes during development. %%% The results of these studies should provide significant insight into the structure and function of proteins involved in the transport of auxin. Auxin itself is an important regulator of growth and development in plants. The studies will also forge a link between the physiology and molecular biology of the action of this important plant hormone.